Assessment of Research and Development in Japan and Europe

Since 1983, the National Science Foundation (NSF), in cooperation with other agencies, has funded the Japanese Technology Evaluation Center (JTEC). Its purpose is to assess the status and trends of Japanese research and development in selected technologies, thus contributing to enhanced scientific and technological cooperation between the United States and Japan. JTEC assessments are performed by panels of U.S. technical experts from industry, academia, and government and are based on analysis of public literature and extensive tours of Japanese laboratories. The focus of the assessments is on the status and long-term direction of Japanese R&D efforts relative to those in the United States. Panel findings are disseminated by workshops where participants critique the preliminary findings, professional journal articles, conferences, and reports available from the National Technical Information Service (NTIS). This proposal describes a plan for study of Japanese and European R&D in six more technologies. The detailed research will be done by six expert panels that will analyze foreign literature, visit foreign laboratories, and present their findings in workshops and in technical reports.